RIA: Toward More Reliable Characterization of Soil Consolidation Properties

The goal of this research is to develop more reliable, experimentally-based constant-rate-of-strain (CRS) test analysis techniques, particularly at fast strain rates. A new computer automated CRS consolidation apparatus will be used to conduct one-dimensional (1-D) consolidation tests on a resedimented clay. The proposal has the following objectives: 1. develop computer automated CRS; 2. conduct CRS tests at various strain rates and characterize the excess pore pressure distribution; 3. compare these results to those from other 1-D consolidation tests; 4. assess the CRS test's suitability for rapidly determining hydraulic conductivity; 5. incorporate the results into a unified data base of time-dependent cohesive behavior.